Compact High Performance Cooling Technologies Research Center - A Planning Grant Proposal for an NSF I/UCRC

The proposed Compact High Performance Cooling Technologies Research Center will address research and development needs of industries in the area of high-performance heat removal from compact spaces. All product sectors in the electronics industry (high-performance, Cost/Performance, Telecommunications, Hand-held, Automotive, and Military/Avionics) face critical electronics cooling challenges, and the Center brings together an excellent team of faculty to address these needs. Faculty participants in the proposed Center are from the Schools of Mechanical Engineering, Electrical and Computer Engineering and Aeronautics and Astronautics at Purdue University, and contribute complimentary competencies in heat transfer, microfluidics, microfabrication, mechatronics, controls, acoustics, sensing and actuation, diagnostics and measurements, and systems-level research.